SBIR Phase I: Novel sensor for non-invasive blood glucose monitoring

This Small Business Small Business Innovation Research (SBIR) Phase I research project aims to develop a device for non-invasive measurement of blood glucose levels using a combination of optical coherence tomography and thermal modulation.

If successful, the proposed technology would be a major advance in non-invasive blood glucose monitoring (NIBGM) and would allow the diabetic population to improve their standard of care by enabling continuous monitoring of blood sugar levels without the pain and inconvenience of frequent skin pricks to obtain blood samples.